Introduction of Modern Instrumentation in the First Two Years of Chemistry: The Iowa Chemistry Curriculum Network (IACCN)

9455646 Greenbowe The objectives of this project are to research, develop, and incorporate three modular instructional resources on modern instrumentation in the first two years of college chemistry. The modules will contain instrumentation-oriented components dealing with current real-world topics, group projects, updated teaching methods, student learning assessments, emphasis on conceptual thinking interactive multimedia and exploratory laboratory experiments. Development of interactive, multimedia computer programs that simulate the operations of the FT-IR, and FT-NMR spectrometers, from sample handling to data acquisition and work-up will be developed in collaboration with Engineering Animation, Inc. A UV-VIS multimedia simulation has already been developed at the University of California at San Diego. A consortium of Iowa's 15 community colleges, three public universities, and four private colleges will collaborate on all aspects of the project through long-distance video conferences on Iowa's fiber-optics communication network and at annual summer workshops. This project will enable students and faculty in the entire state of Iowa to have facile access to modern instrumentation (UV-VIS, FT-IR and FT- NMR) via computer simulations. Iowa State university will serve as a clearing house for running actual chemical samples submitted by students of the participating institutions. The samples will be run on instruments at Iowa State University, and the spectra will be made available to the students and faculty from the community colleges and private colleges over the internet (via anon ftp,the world wide web, or by e-mail) as digital files or graphic images. This project will provide new curriculum enhancements and developments to four-year institutions and all community colleges in the state of Iowa.